Mathematical Sciences: Supercomputer Resources in support ofthe Princeton University/DARPA URI Mathematical Theory of Complex Flows in Complex Geometrics

This research program is concerned with the mathematical theory of complex fluid flows in complex geometrical domains. Only numerical solutions are expected for this type of problems and the main task here is to make the best use of the super- computing facilities available to obtain as accurate a solution as we possibly can for a given problem. The research program will develop a number of supercomputer codes, each appropriate for a different class of problems. The research results will have applications in the aero- dynamics of aircraft, atmospheric science and oceanography as well as other fluid dynamics phenomena. The PI's current research supports from other divisions of NSF and other funding agencies confirm this expectation.